International Symposium on the Role of the Cryosphere in Global Change

9413873 Jezek This award is for support for partial funding of the symposium volume for a symposium to take place this summer in Columbus, Ohio entitled "The Role of the Cryosphere in Global Change". The purpose of the meeting is to bring together scientists involved with observing and modeling high latitude processes and assessing the impact of changes in those processes on global climate. This symposium is being organized by the International Glaciological Society (IGS) and is co-sponsored by the Byrd Polar Research Center, the American Meteorological Society and the American Geophysical Union. The symposium volume is to be published as a proceedings volume of the Annals of Glaciology. ***